Promoting Engineering Problem Framing Skill-Development in High School Science and Engineering Courses

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects. This collaborative project involving Ohio Northern University, Ohio State University, and Olathe Northwest High School will develop curricular activities and assessment guidance for K-12 science and engineering educators who seek to incorporate engineering design content into their biology, chemistry, and physics classes. This work is important because students' limited exposure to engineering activities can negatively impact their decisions to enroll in STEM courses and to pursue engineering careers. Further, many states are adopting or considering adopting the Next Generation Science Standards (NGSS), a set of classroom standards which integrate engineering content into traditional science disciplines. While high school teachers under these standards are expected to incorporate the cross-cutting engineering content into their courses, they generally receive little high-quality support for doing so. If successful, the project could provide a powerful model of how to support busy and resource-constrained STEM teachers, and create broader student interest in STEM careers.

Drawing from best practices on instructional design, the project's main objectives are to: (1) design, field-test, and evaluate the impact of 12 NGSS-aligned, engineering problem-framing design activities on students enrolled in grades 9-12 science courses and (2) design and conduct high-quality, sustained professional development that fosters participating high school science teachers' ability to deploy the NGSS concepts-linked activities. Data sources include student design artifacts, video of classroom instruction, and surveys assessing student and teacher attitudes toward engineering, student design self-efficacy and teacher self-efficacy for teaching engineering content. These data will be analyzed to determine what teachers learned from the professional development activities, how those activities informed their teaching and in turn, how students' engagement with the engineering activities relates to their engineering design skills and attitudes. In terms of intellectual merit, the project aims to develop a learning progression of students' engineering design problem-framing skills by characterizing any observed change in students' design work and attitudes over time.